From Enrollment to Graduation: Strengthening Critical Pipelines in Engineering and Construction Management

This project will contribute to the national need for well-educated scientists, mathematicians, engineers, and technicians by supporting the retention and graduation of high-achieving, low-income students with demonstrated financial need at Norwich University. A total of 24 scholars pursuing Bachelor of Science degrees in Civil Engineering, Mechanical Engineering, Electrical Engineering, Interdisciplinary Engineering, and Construction Management will receive scholarships averaging $15,000 for up to five years. Scholars will receive faculty and peer mentoring, and the project will build strong scholar cohorts through curricular and co-curricular activities. Additional activities for scholars include orientation activities and outreach activities.

The overall goal of this Track 2 Scholarships in STEM project is to increase STEM degree completion of academically talented, low-income undergraduates with demonstrated financial need. There is a significant national need to grow the STEM workforce and nurture key talent that will ensure economic competitiveness and provide domestic leadership across critical sectors. This project directly speaks to this need by supporting STEM student success, which will strengthen the workforce in both military and civilian sectors and other key areas of need. The project will be assessed by an experienced evaluator who will lead a formative and summative evaluation process, and the data generated will contribute to the knowledge base regarding effective strategies to support talented, low-income students in STEM. This project is funded by NSF's Scholarships in Science, Technology, Engineering, and Mathematics program, which seeks to increase the number of academically talented, low-income students with demonstrated financial need who earn degrees in STEM fields. It also aims to improve the education of future STEM workers, and to generate knowledge about academic success, retention, transfer, graduation, and academic/career pathways of low-income students.